Shape Determinants of Protein Structure and Function: A New Approach Based on Ray-Representation Methodology

Questions of chemical reactivity can often be cast as questions of molecular geometry. In particular, space filling models are often invoked to rationalize the chemical behavior of proteins. Some of the physio-chemical properties which have been treated by geometric methods include: packing density, folding energetics, and molecular recognition. New methods are presented - based on the idea of the ray representation - for manipulating molecular shapes and computing their geometric properties. The ray representation formalism provides a unified means of dealing with geometric issues in molecular modeling. Computation of ray-representations for use in molecular analysis were initially accomplished on special purpose computers in the Principal Investigator's laboratory. However it has been recently shown that molecular ray-reps can be computed with high speed on general purpose single and multi-processor work-stations. The proposed work will further develop ray-representation techniques for the study of proteins structure and function. Three separate areas of research will be pursued. First, algorithmic enhancements to rayrepresentation calculations will be studied. There will be particular focus on improvements in accuracy and speed. General purpose tools based on ray-casting algorithms will be developed for use in molecular modeling. Second, working with ray-representations, the details of building space-filling models for predictive analysis of protein physio-chemical properties will be studied. In particular, models will be calibrated with respect to prediction of water bearing cavities and surface solvation potentials. A survey of protein packing properties based on high resolution data will be undertaken. Third, simulations will consider the role of cavity dynamics in protein ligand uptake.